Travel Support to NATO Advanced Study Institute (Sesimbra, Portugal, June 16-28, 1996)

9632892 Bhushan Partial travel support is provided to allow a group of US researchers and advanced graduate students attend the NATO Advanced Study Institute "MICRO/NANO-TRIBOLOGY AND ITS APPLICATIONS" IN sesimbra, Portugal during June 16-28, 1996, in order to obtain training in the rapidly advancing science in this field and to become exposed to some of its advanced instrumentation. ***